Conference: CRA-NSF Industry Summit: Ensuring a Sustainable National Strategy for Computing Educational Transformation and Infrastructure

This project led by the Computing Research Association (CRA) is for a one-day workshop in mid-February in the Silicon Valley area. The objective is to convene a meeting with leaders and representatives in industry and philanthropy to strategize on how they can partner with federal and state governments to support educational transformation leveraging computing and data infrastructure. The infrastructure includes the resources, expertise, and people needed to provide world-class resources for educational transformation and research, critical for US competitiveness and a world-class educated workforce.

The intellectual merit of the project includes the CRA's use of the well-established and effective technique of structured dialog to moderate discussions, raise relevant questions, understand the different community needs, explore alternative approaches, and lay the foundations for a roadmap for government, particularly NSF, for future investments in multi-state consortia that are technically feasible and scalable. The subject of this workshop is important and timely given the rapid advances in AI nationally and internationally. The primary output of the workshop will be a strategy for public-private partnerships and federal and state governments to provide those resources in the coming years. Broader impacts include strategic investments in the U.S. that create opportunities for future advances in science and technology.